U.S.-Latin America Cooperative Research: First Spring School of Theoretical Physics and Mathematics: Point a Pitr Guadeloupe; May 30-June 13, 1993

This Americas Program award will support the participation of U.S. and Latin American scientists in the first school of theoretical physics and mathematics, to be held in Pointe a Pitre, Guadaloupe, May 30-June 13, 1993. This activity is jointly sponsored by the American Mathematical Society, with Dr. James W. Maxwell as organizer, and the Societe Mathematique de France. The School will present recent progress in non-commutative geometry, infinite dimensional geometry and operator algebras, with applications to quantum statistical mechanics and quantum field theory. About 15 graduate students and recent doctorates from Latin America and U.S. will participate. The subject of the conference is timely and of great interest; the topics covered are extremely important and the lecturers are of the highest international calibre in their fields. This exposure to high level mathematics will give the young and emerging scientists valuable added professional training and the opportunity to interact with eminent mathematicians and physicists.